Single Crystal Neutron Diffraction Studies of DNA Molecules

DNA molecules play a central role in the biological processes of the living cell. During the life cycle of the cell, they undergo a change in their conformational states going from the highly organized and condensed form in chromosomes to a more open state that presumably exists when the DNA is biologically active, as during replication, transcription, genetic recombination or in DNA repair. In order to understand how the different steps of these biological reactions are carried out and regulated, it is necessary to have a clear picture of the different conformational states that DNA molecules are capable of adopting. Dr. Wang will carry out high resolution single crystal neutron diffraction studies on crystals of deoxyoligonucleotide molecules as well as their complexes with antitumor drugs in order to understand the structure and dynamics of DNA molecules. From these studies, the solvent organization around the DNA molecules will be carefully defined and analyzed. The information obtained from neutron diffraction studies will be compared with that from X-ray studies and correlated with the solution biophysical properties of DNA that have been studied extensively by other spectroscopic techniques such as nuclear magnetic resonance and laser Raman spectroscopy.